U.S. Panel on Wind and Seismic Effects

The U.S.-Japan Panel on Wind and Seismic Effects was created in 1968. Annual meetings alternate between Japan and the U.S. (odd numbered years in Japan; even numbered years in the U.S.). The Panel develops technologies that advance engineering design and construction practices for an improved quality-of-life. The Panel is composed on 17 Federal agencies who participate in ten task committees. The task committees focus on specific national issues, e.g., earthquake hazards reduction, buried pipelines, transportation and telecommunication systems, repair and retrofit of structures. The results of the task committee workshops and conferences are shared at the annual joint meeting and usually published as proceedings.